Topics in Percolation & Particle Models

This project comprises studies that seek to answer basic questions arising
in two areas of Probability Theory, Interacting Particle Systems and
Percolation. They include the construction and application
of nucleation processes
taking place at the touching points of forward and backward
paths in the (double) Brownian web and the conceptually related
marking process on the ``double points'' of the (critical) continuum
nonsimple loop process. This loop process, constructed by the PI
and Federico Camia based on the Schramm-Loewner evolution (SLE)
and the work of Schramm and Smirnov, is the full scaling limit
for two-dimensional critical percolation. The double points,
where the loops touch themselves and each other, represent the
scaling limits of lattice sites where a change in microscopic state
has a macroscopic effect on connectivity.

There are many situations, such as the functioning of the Internet
and the behavior of engineered materials and of the economy,
where many small individuals (web sites, molecules, investors)
interact with each other in seemingly random ways leading to
novel behavior of the entire system. A classic goal of Probability
Theory and Statistics is to understand these situations. A particularly
intriguing set of problems concerns so called ``critical'' systems
where even one individual can provide a tipping point for the whole
system. The goal of this research project is to lay a firm foundation
for the mathematics needed to understand such critical systems, at least
in some special situations where there have been theoretical breakthroughs
in the past several years. It is hoped that progress in these
special cases will lead to more general progress.